Collaborative Research Network - A Network for Global Change Research in the Americas

The Inter-American Institute for Global Change Research (IAI) was created by the Agreement Establishing the Inter American Institute for Global Change Research, done at Montevideo on May 13, 1992. The IAI was created to coordinate and promote scientific research related to global change in the Americas. The Institute has an evolving Scientific Agenda identifying particular areas for research. The US has played a leading role in the creation of the IAI and has been an active participant in the IAI since its creation. The IAI proposes to carry out a plan of research according to a Science Agenda that has been defined by the scientific community of the Americas in a series of meetings held over the last five years, and has been agreed upon by the member States. The Scientific Agenda is complementary to the research priorities of the US Global Change Research Program. The IAI will supervise fourteen research teams that in total sum ninety-eight separate research institutions that will carry out Collaborative research on Scientific Agenda items. The fourteen teams are led by the following institutions, and will carry out the following projects:
1. Centro de Investigaciones Cientificas y de Educacion
Superior de Ensenada (Mexico): An Eastern Pacific
Consortium for Research on Global Change in Coastal and
Oceanic Regions
2. Escuela Politecnica del Litoral (Ecuador): Multi
Objective Study of Climate Variability for Impact
Mitigation in the Trade Convergence Climate Complex Region 3. Florida International University (USA): Andean Amazon
Rivers Analysis and Management (AARAM) Project
4. Fundacao Oswaldo Cruz (Brazil): Diagnostics and
Prediction of Climate Variability and Human Health Impacts
in the Tropical Americas
5. Scripps Institute of Oceanography/University of
California at San Diego (USA): Enhanced Ultraviolet-B
Radiation in Natural Ecosystems as an Added Perturbation
Due to Ozone Development
6. The Network for Social Studies on Disaster Prevention in
Latin America (Peru): ENSO Disaster Risk Management in
Latin America: A Proposal for the Consolidation of a
Regional Network for Comparative Research, Information and
Training from a Social Perspective
7. Universidad Autonoma de Mexico (Mexico): Climate
Variability and its Impacts in the Mexican, Central
American and Caribbean Regions
8. Universidad de Buenos Aires (Argentina): Development of
a Collaborative Research Network for the Study of Regional
Climate Variability and Changes, their Prediction and
Impact in the MERCOSUR Area
9. Universidad de Buenos Aires (Argentina): The Effects of
Biodiversity on Ecosystem Functioning: A Comparison Across
the Americas
10. Universidad de los Andes (Venezuela): Comparative
Studies of Global Change Effects on the Vegetation of Two
Tropical Ecosystems: the High Mountain and the Seasonal
Savanna
11. Universidade do Sao Paulo (Brazil): An International
Consortium for the Study of Global and Climate Changes in
the Western South Atlantic
12. University of Florida (USA): Cattle, Land Use and
Deforestation in the Amazon: A Comparative Study
13. University of Saskatchewan (Canada): Biogeochemical
Cycles Under Land Use Change in the Semiarid Americas
14. University of Western Ontario (Canada): The Assessment
of Present, Past and Future Climate Variability in the
Americas from Treeline Environments
The teams were selected on the basis of submitted proposals evaluated for technical merit using a peer-review system. Twelve of these teams have US scientists involved as co-Investigators, and all have US scientists indirectly involved as affiliated researchers. Results from this research will be available to the US scientific community, as a condition of US funding, through an electronic data and information system connected to the Internet. The IAI receives additional support for its activities from the other Parties to the Agreement Establishing the IAI: Argentina, Bolivia, Brazil, Canada, Colombia, Costa Rica, Chile, Cuba, the Dominican Republic, Ecuador, Guatemala, Jamaica, Mexico, Panama, Paraguay, Peru, Uruguay, and Venezuela. This additional support takes the form of direct contributions to the IAI Budget, in-kind contributions, or in-kind contribution pledges made at the time of proposal submission in the form of investigator salaries, ship-time, computer time, logistical support, etc.